A Science Content Update Course for Life Science Teachers inthe Secondary Schools of the BYU-Local School District Partnership

This project will improve the subject matter and teaching background of high school biology teachers. Beginning with the Winter Semester, 1986, and again during the Fall Semester, 1986, In-Service Workshops will be conducted by Brigham Young faculty members at two locations each semester. Thirty teachers will participate each semester at each site. Fourteen topics chosen for presentation have been selected by teachers in the school districts. Each period will be devoted to lecture, laboratory work, and discussion of how the materials can be used in the classroom.